Doctoral Dissertation Research: Economics of a Light Bulb: Experimental Evidence on CFLs and End-User Behavior

ECONOMICS OF A LIGHT BULB: EXPERIMENTAL EVIDENCE ON CFLS AND END-USER BEHAVIOR

Eliana Carranza and Robyn Meeks

Abstract

Residential access to modern energy and lighting is considered to be important for development as
it improves living standards and productivity. However, developing countries can face severe
constraints on available electricity. As a consequence, residential electricity use is limited and
households pay prices that can be as high as those observed in wealthier nations. In the developing
world, where lighting is a major component of residential electricity consumption, energy efficient
technologies such as compact fluorescent lamps (CFLs) can offer electricity savings and allow more
energy services. Still, where CFLs have been introduced in developing countries through mass
replacement programs at a zero or subsidized price, their use is often discontinued once the
consumer is required to pay the full price. This represents a major constraint to realizing the
potential impacts of energy efficient lighting.

To better understand the adoption, continued use, and diffusion process of the CFL technology, this
study uses randomized experiments to inspect two major mechanisms: (1) the “rebound” effect,
which is the result of behavioral responses that boost consumption and offset CFLs’ technologically
feasible electricity savings, and (2) the role of “peer” networks in spreading information on a new
technology. Although the initial adoption of CFLs may be limited because the willingness to pay
(WTP) is lower than the market price, their diffusion may be restricted if information is too noisy or
if a greater importance is put on negative rather than positive information.

The study furthers knowledge on the behavioral barriers that arise from end-user interactions with
energy-efficient technologies. The findings are relevant to several aspects of energy conservation
policy. Examination of the rebound will inform the optimal combination of innovation and price
policies and the trade-off between welfare and electricity conservation. Examination of peer-
networks will discern between different learning mechanisms and tell how best to advance CFLs’
diffusion. Lastly, WTP studies assist in developing strategies for optimal pricing and subsidies.
Beyond the policy relevance for CFL programs deployed recently in developing countries, lessons
learned regarding responses to energy efficient technologies have behavioral implications that are
also relevant to developed countries.